Engineering Research Equipment Grant: Dynamic Fracture in Quasi-Brittle Materials

This research equipment award is made to partially fund the purchase of a ruby laser and related accessories that will be used to improve our understanding of quasi-brittle materials under impact loads. It is hoped that these studies will also lead to a link between microscopic issues and macroscopic engineering behavior.